Studies of Magnetosphere-Ionosphere Coupling and Space Weather using the Magnetometer Array for Cusp and Cleft Studies (MACCS)

This project will continue the operation of, data collection of , data dissemination from the Magnetometer Array for Cusp and Cleft Studies (MACCS). The MACCS array now consists of nine high latitude magnetometers covering the eastern Canadian Arctic. In addition to the operation, data collection and data dissemination activities the project involves several scientific research activities. These activities include: (1) understanding the ULF waves associated with magnetic storms, (2) understanding the coupling of the ionospheric electric field to magnetospheric processes and the solar wind drivers, (3) understanding high-latitude transient events such as the formation of polar patches, and (4) understanding the relation between the location of ULF waves, visual auroral phenomena and field-aligned current systems.

The project is being carried out at an undergraduate institution and a number of undergraduates, including students from under-represented groups will be involved with the research.